Dynamics and Kinetics

PI: Leonid Bunimovich
Proposal Number: 0140165

ABSTRACT

The proposed research deals with the studies of finite- and
infinite-dimensional dynamical systems as well as of some
hybrid (intermediate between dynamical and stochastic) systems.
The class of hybrid systems which will be specifically addressed
is formed by deterministic walks in random environments. It has
been shownrecently that a large subclass of such systems (walks
in rigid environments) is completely solvable in 1D. The proposed
study deals with the case of environments with variable rigidity.
Another part of the proposal deals with the farther development of
recently constructed first natural examples of Hamiltonian systems
with divided phase space. The goal now is to show that a rather
general class of such billiards has positive metric entropy in
any (finite) dimension. The considered problems of statistical
mechanics deal with the rigorous derivation of formulas for
kinetic coefficients and for escape rate in open systems. Among
the problems which deal with infinite-dymensional systems are
chaos-order transitions in Lattice Dynamical Systems and chaos
in nonlinear wave equations. Other problems deal with various
systems ranging from the Ergodic Theory (Benford's law)
to some simple models of brain dynamics and logistics.

Traditionally the mathematical models of real systems are
either purely deterministic or purely stochastic. These two
classes of models enjoy having a rich theory, and researchers
have quite good intuition on their behavior, i.e. they basically
know what to expect. This intuition is essentially based on a
rich collection of completely solvable (i.e. completely
understood) models. However, a majority of real systems are
neither purely deterministic nor purely stochastic. Instead
they have both (deterministic and stochastic) features. This
project deals with a big class of such models which were
independently introduced in communication theory, statistical
physics,chemical kinetics, theory of artificiall intellect, etc.